Conference: 2026 Granular Matter Gordon Research Conference and Seminar

This award supports U.S.-based scientists in attending the 2026 Gordon Research Conference and Gordon Research Seminar on Granular Matter. Granular matter encompasses any system with discrete particles as a substantial component. This includes materials like sand, soil, mud, and algal blooms. The conference meetings will accelerate understanding of granular materials across disciplines, including geosciences, physics, materials science, engineering, mathematics, and biology. Granular matter research has practical importance, such as for landslide prediction and industrial processes.

Conference sessions will address the physics of granular matter, grains in the natural world (sand, snow), biological materials, artificial intelligence, manufacturing, and more. These topics will draw attendees and speakers from academia, industry, and government labs. The meeting format will emphasize presentation of new, unpublished work, followed by open discussion.